National Center for Next Generation Manufacturing (NCNGM)

The National Center for Next Generation Manufacturing (NCNGM) addresses advanced manufacturing technician education offered by community college educators in partnership with industry and other stakeholders. The center is closing the skills gap in the industry, which requires highly trained technicians to operate and maintain technologies such as robots, computers, artificial intelligence (AI), and precision equipment. The center is changing the public image of manufacturing from low-skilled, unfulfilling work to rewarding, well-paying careers. The center's robust national network of community and technical colleges, industry, and other organizations is helping to secure the skilled workforce that American manufacturing needs to compete globally. Since 2021, the center has reached over 360 community colleges. This renewal award will broaden the reach and deepen the impact.

NCNGM's goals include broadening and solidifying a network of manufacturing education and industry partners; developing and disseminating industry-driven resources for AI applications in advanced manufacturing technician education; coordinating professional development for educators; and promoting awareness of advanced manufacturing careers. The center structures its technical work through five discipline-specific Innovation Hubs (Advanced Manufacturing, Fabrication, Processing, Smart Manufacturing, and Biomanufacturing), each led by community college faculty and industry experts. A Convergence Collaborative engages NSF ATE centers and consortia specializing in AI, immersive technologies, and cybersecurity. Knowledge, skills, and abilities are developed through the Business and Industry Leadership Teams (BILTs), which convene industry representatives to identify the competencies needed in each subdiscipline. Findings are shared through the center's Community of Practice, summits, webinars, and a public repository. In partnership with the NSF-funded National Applied Artificial Intelligence Consortium (NAAIC), NCNGM is embedding AI literacy and applied AI competencies across all goals and hubs, preparing community college graduates for the Industry 4.0 and 5.0 workforce. This project is funded by the Advanced Technological Education program, which focuses on the education of technicians for the advanced-technology fields that drive the nation's economy.